REU SITE: Undergraduate Research Experiences in Phyiscs and Astronomy

9424024 Heller A new "Research Experiences for Undergraduates" Site will be initiated in the Physics Department of the University of Minnesota. Recruitment will be conducted nationally, with a special emphasis on women and minority students. The Site will provide consequential involvement in research in a number of areas of physics. There will be a number of professional events organized for the participants. ***